Robust Mechanism Design

An important recent application of economic theory has been to the design
of markets. For example, the design of the spectrum auctions in the United
States and around the world has been much influenced by recent developments
in auction theory and the theory of mechanism design. However, much of the
theory has been developed with a simplified view of (1) how different
market participants value the objects for sale; and (2) what they believe
other market participants' beliefs. Such simplifying assumptions have been
made for the sake of tractability and the resulting theories have been
highly successful. However, one concern of practitioners and theorists
alike has been that the "optimal" mechanisms derived from theory are
sometimes too complex to be implemented in practice, which has lead for a
search for simpler mechanisms that seem to be more robust to the underlying
description of the environment. Our project will use new developments in
game theory, allowing for richer "types" of market participants (including
richer beliefs) to provide a theoretical justification for the use of
simple mechanisms.

The project addresses two separate but linked objectives. First, we examine
how robust received mechanisms are to allowing the richer type spaces. In
particular, researchers often argue that solution concepts stronger than
Bayes-Nash equilibrium, such as dominance solvability and ex post
equilibrium, are desirable because they are "robust," although the exact
notion of robustness is not always described. One way of formalizing
robustness is to examine whether results continue to hold on richer type
spaces. In our proposal, we discuss various type spaces in between the
naive type space and the universal type space, and examine how different
mechanisms' performances vary as we vary the type space.

Our second objective is to develop new optimal mechanisms for particular
type spaces, intermediate between the standard space of all payoff-relevant
types and the universal type space. Optimality in this context refers to
the objective of the mechanism designer, which may coincide with social
efficiency or simply be a revenue maximization problem for the designer.
When the objective of the mechanism designer requires him to maximize an
expected value, it will be appropriate to consider subspaces of the
universal type space, which can be generated from a prior distribution
function.